Dielectric Studies of Proteins

9701453 Pollack This is a Woman Career Advancement Award to study the dielectric properties of proteins. The goal of these experiments is to study the important problems of protein shape (conformation) and protein folding, the process by which a linear chain of amino acids assumes the shape which allows the protein to perform its specific function. Folding intermediates of proteins will be studied with different techniques, such as measurements of the dielectric constant of a protein solution. The dielectric constant is a measure of the distribution of charge within the macromolecule and changes as the protein folds. Membrane proteins will also be studied. %%% This is a Woman Career Advancement Award to study the dielectric properties of proteins. Proteins are large molecules that consist of a long chain of amino acids. The molecule 'folds' itself into a specific shape that dictates its function. The goal of these experiments is to gain insight into the important problems of protein shape (conformation) and protein folding. Different techniques, such as a detailed measurements of the distribution of positive and negative charges in the molecule, can yield new information about the forces that cause the protein to fold in a unique way. Different types of proteins will be studied, including the important class of proteins that cross membranes. ***